The Cytoskeleton and Cell Cycle Controls

The PI has developed a novel experimental system, the caffeine induced monaster. She will concentrate on characterizing the system thoroughly before attempting to use the system to understand the control of cell cycle and proliferation.